Valuation-Based Systems for Decision Analysis

The goal of this project is to develop new methods for representing and solving decision problems. The main focus is on representation based on the framework of valuation-based systems (VBS), a framework capable of representing uncertain knowledge in many different domains including Bayesian probability theory, Dempster-Shafer's theory of belief functions, Spohn's theory of epistemic beliefs, and Zadeh-Dubois-Prade's possibility theory. Preliminary results show that VBS representation is more expressive than both decision trees and influence diagrams, and the solution method is more efficient. This project will study the expressiveness of VBS representations and the computational efficiency of the VBS solution method. While decision trees are based on the semantics of possible scenarios and influence diagrams are based on the semantics of conditional independence, VBS are based on the semantics of factorization. In this project, the semantics of VBS will be extended to include conditional independence. In addition, the project will begin the development of a coherent decision calculus for belief functions, epistemic beliefs, and possibility theory.